Mathematical Sciences: Geometric Methods for Nonlinear Systems

In this project, group-theoretic and geometric methods will be applied to dynamical systems. An analysis from a geometric point of view will be given for a nonlinear system modelling the evolution of baroclinic amplitude pressure waves in the atmosphere. Nonlinear phenomena can be modelled by dynamical systems. Small changes or errors in initial data can lead to dramatic even chaotic behavior at a later time. The prediction of weather is such an example.